EAGER: TIGER - Tight Integration of Grid Enabled Researchers

Integration of Grid Enabled Researchers (TIGER)

The intent of the TIGER project is to implement and evaluate a "campus bridge" model that addresses the growing need for Cyber-Infrastructure (CI) support for researchers at campuses of every size requiring resources that may not be of petascale size, but that outstrip the infrastructure that can be supported at most institutions. The project will support regional access to HPC/HTC facilities, computational and visualization expertise as well as leveraging of expertise from each participating institution. Computational nodes for regional use have already been purchased via prior EPSCoR and DoE awards. The two HBCU partners will be connected to the regional R&E network via previously awarded ESPCoR RII 2 and ESPCoR CI R2 awards. A key task is to provide expert implementation and integration services and also increase the size of the workforce having this skill sets.

The project will extend the campus experience to a regional one, funding a collaboration of Clemson expertise and faculty at comprehensives and HBCUs and will expand and grow cyber-enabled knowledge discovery communities. A successful outcome is potentially transformative in providing a new model shown to enable and grow a broad and diverse cyber-enabled research community at a regional scale, leveraging strengths at a regional center of CI expertise.